NeTS-NR: Towards a Service-Oriented Internet

National Science Foundation
NETS - Research in Network Technologies and Systems
CISE/CNS

ABSTRACT

Proposal Number: 0435444
Principal Investigator: Zhang, Zhi-Li
Institution: University of Minnesota-Twin Cities
Proposal Title: NeTS-NR: Towards a Service-Oriented Internet

This project develops a novel service-oriented Internet (SOI) architecture that circumvents the inherent limitations of the current IP infrastructure. The new architecture provides a unified substrate for enabling and supporting new Internet services, while leveraging existing IP networks for data delivery. In the SOI architecture three key abstractions are advanced: 1) the notion of service cloud which is an abstract representation of a collection of service entities that an application or information service provider deploys over the Internet to fur-nish its services; 2) a new two-level, location-independent addressing scheme consisting of a globally defined, fixed-length service id which uniquely identifies each service cloud, and a variable-length, service-specific object id which speci-fies an object within a service cloud; 3) a new service layer that resides between the IP network layer and end-system layers for flexible support of service rout-ing and delivery. The SOI architecture can potentially facilitate and enable the deployment of value-added services that will spur the further development of the Internet, and produce great benefits to the society in general. Furthermore, the understanding and insights to be gained as a result of this research will lead to the establishment of design principles, mechanisms, and guidelines for building and evolving the future Internet.

Dr. Admela Jukan
Program Director, CISE/CNS
Aug 5, 2004.
.